Travel Support for the 29th IEEE International Conference on Distributed Computing Systems

This travel grant proposal seeks financial support from the National Science Foundation
(NSF) for the 29th IEEE International Conference on Distributed Computing Systems
(ICDCS), to be held in Montreal, Quebec, Canada, June 22-26, 2009 m. ICDCS is a
flagship conference in distributed computing, sponsored by the Institute for Electrical and
Electronics Engineers (IEEE). It has a long and glorious history of significant
achievements and worldwide visibility. The funds will be used to support junior faculty and graduate students to
attend the conference and present papers.